Worker Allocation Decisions in Organizations Based on Individual Learning and Forgetting

Do workers complement one another, one's strength aligning with another's
weakness and vice versa? The implications of this question are substantial
when considering the learning characteristics of a company's workforce. For
some industrial tasks, slow learning produces greater productivity in the
long run, and fast learning greater short-run productivity. This research
project will address the above question and determine whether workers
complement one another with respect to improving overall productivity in
the workplace. With the emerging movement of business and industry toward
shorter market lifecycles, more aggressive cross-training, flexible
manufacturing, and quick-response manufacturing, worker learning and
forgetting behavior has a heightened impact on company performance. This
research will identify and evaluate policies for assigning workers to tasks
based on such individual characteristics in order to improve efficiency and
possibly even worker morale. For additional information, visit the web-site
of the Productivity Measurement and Improvement (PM&I), a Laboratory of the
Department of Industrial Engineering at the University of
Wisconsin-Madison: http://dipsy.ie.wisc.edu/.